ADAPTIVE AND INTELLIGENT SYSTEMS: Models of Photometric, Geometric and Dynamic Characteristics of Video Imagery for Segmentation, Classification and Synthesis, Including Layers

Intellectual Merit:

The objective of this research is to develop stochastic dynamical
models of video imagery for the purpose of synthesis and classification
of spatio-temporal events in video.
The approach is based on exploiting tools from dynamical systems
theory, statistical signal processing, differential geometry and
functional analysis in order to infer the spatio-temporal statistics of
a video segment and learn (identify) a dynamical model that represents
its "signature". This allows generating novel portions of a video
segment, or recognizing it in previously unseen video. The
investigators will develop identification algorithms for such models,
segmentation schemes to partition their spatio-temporal domain into
statistically coherent regions, and endow them with a metric structure
to enable classification and recognition.

Broader Impacts:

The models developed will allow the generation of synthetic portions of
video, and the manipulation of their spatio-temporal statistics, which
is relevant for compression and transmission, and post-production
editing and development of interactive games. Furthermore, these models
support classification tasks, including detection of events of interest
in video and segmentation into spatio-temporal segments. This is
important for video-based recognition in security, surveillance, video
coding, and environmental monitoring (remote detection of fire, smoke,
steam). A particular class of spatio-temporal processes studied
includes human motion. The investigators will develop analytical and
computational tools to enable the detection and recognition of
individuals and their gait from video data. Training students in such a
diverse set of analytical and computational tools is a challenge, but
one that must be tackled in a modern engineering academic environment.